Student Travel Support for the Fifth Workshop on Hot Topics in Security (HotSec '10); August 2010; Washington, DC

This proposal requests funding to assist approximately 10 US-based graduate
students to attend the Fifth Workshop on Hot Topics in Security (HotSec).
Participation in HotSec and similar conferences is a valuable and important part of the
graduate school experience. It provides students with the opportunity to interact with
more senior researchers in the field, and exposes students to leading edge work in the
field. The support requested in this proposal will enable the participation of students who
would otherwise be unable to attend HotSec.